Research In Hamiltonian Dynamics

Professor Xia proposes to continue his investigation of dynamics of
Hamiltonian systems. One of the most important problems in Hamiltonian
dynamical systems is whether orbits in typical systems are stable. The
proposed research will address these problems, with research topics such as
Aubry-Mather theory, Arnold diffusions, chaotic behaviors and Newtonian
$n$-body problem. The ultimate goal is to show that typical near integrable
Hamiltonians in higher dimensions are topologically unstable.

The proposed research concerns the stability problems in Hamiltonian
dyanmics. Hamiltonian dynamical systems model many systems arising
from classical mechanics, celestial mechanics and physics. These
problems has a long history, going back to Poincare and Birkhoff. A
typical question one often asks is the following: Is our solar system
stable? One of our goals is to find an answer to this and a large
class of related questions. With recent progresses in the theory of
modern dynamical systems, we understand much better the chaotic nature
of typical systems. However, the stability problem remains open except
in some special cases and it is one of the most important areas of
study, from both theoretical point of view and wide applications it
finds in various physical systems.